Seismic Behavior of Composite Coupled Walls: Coupling Beams Including Slab and System

9714860
Shahrooz

Through integrated analytical and experimental studies, this research will address (a) effects of significant yielding of wall reinforcement and combined wall flexural and diagonal shear cracks on stiffness and strength of steel/composite coupling beams and beam-wall connection; (b) impacts of coupling beam axial forces on member and connection performance; (c) level of axial force in steel/composite coupling beams versus reinforced concrete coupling beams; (d) slab effects on distribution of internal stresses and overall behavior of coupled wall systems with steel/composite beams, and those with reinforced concrete coupling beams; (e) importance of soil-structure interaction on coupling beam rotation demands; and (f) general modeling of structural walls.
This is a collaborative investigation between University of Cincinnati (UC) and The Building Research Institute (BRI) of Japan. In the experience study, four approximately 1/3-scale sub assemblages of a coupling beam, wall pier, and floor slab will be fabricated and tested. Wall gravity axial load will be simulated in all specimens. The test results in conjunction with the analytical results will be used to modify the existing state-of-the-art design techniques for steel/composite coupling beams and their connections to reinforced concrete walls.